Global harmonic analysis and asymptotic geometry

Abstract

Award: DMS-0603850
Principal Investigator: Steve Zelditch

Global harmonic analysis is concerned with the impact of global
geometry, particularly the geodesic flow, on the behavior of
eigenfunctions, eigenvalues and waves on a Riemannian
manifold. By comparison, local harmonic analysis uses only local
analysis on small balls. As an example of the impact of global
geometry, ergodicity of the geodesic flow implies the uniform
distribution of eigenfunctions in the unit cotangent bundle. A
new result in this direction is part of the proposal: ergodicity
of the geodesic flow can be used to determine the asymptotics of
the complex nodal hypersurface of eigenfunctions. In another
direction, sup norms of eigenfunctions are related to existence
of focal points for the geodesic flow and to the first return map
on geodesic directions at the focal point (a joint project with
C. Sogge and J. Toth). Asymptotic geometry aims to apply similar
methods to study problems in complex geometry, in particular to
the program of Yau, Tian, and Donaldson to study approximation of
all hermitian metrics on a positive line bundle by Bergman
metrics. A joint project with J. Song is to use asymptotics of
Bergman kernels on toric varieties to study a problem of
Phong-Sturm on how the geometry of the symmetric space of Bergman
metrics of height N approaches the Monge-Ampere geodesic geometry
of the full infinite dimensional space of hermitian metrics. In
another direction, an ongoing joint project with B. Shiffman is
to study statistical algebraic geometry of high degree varieties
as the degree tends to infinity. This has applications in string
theory (joint work with M. Douglas).

Both topics involve the application of ideas and methods
regarding the relation of classical and quantum mechanics to
geometry and analysis. In each area there is a small "Planck's
constant" which tends to zero. In the global analysis of
eigenfunctions, it is one over the eigenvalue; in geometry it is
the degree of a polynomial. As the "Planck constant" tends to
zero, analytic objects (quantum mechanical) such as
eigenfunctions or Bergman kernels tend to geometric objects
(classical mechanics), which are much easier to
understand. Physicists, engineers and mathematicians have been
studying the relations between classical and quantum mechanics
for almost a hundred years now, but the relations are so
difficult that fundamental problems remain. To take a venerable
example, Chladnyi first demonstrated two hundred years ago that,
if one puts sand on a vibrating drum, the sand will move to the
"nodal line". Despite the two hundred years, no one knows how
nodal lines snake around on general drums. One project above is
to determine the "complex" nodal line when billiards played on
the drum move in a chaotic way. Thus if one "thickens" the nodal
line in complex directions, one can understand how it snakes
around on chaotic drum heads.